Vortices, Quilts, and Quasimaps

The PI will use gauged Floer theory to study non-displaceability of
Lagrangian tori in possibly open symplectic manifolds via
compactifications such as symplectic toric orbifolds, and compare with
results of McDuff on displaceability. With F. Ziltener, his former
postdoctoral advisee E. Gonzalez, and his current student Sushmita
Venugopalan the PI will study the quantum cohomology of quotients and
relationships with gauged Gromov-Witten theory. In particular he will
(a) prove a quantum version of Kalkman's wall-crossing formula which
governs the behavior of Gromov-Witten invariants under variation of
symplectic quotient and proves birational equivalence under crepant
flops in many cases, as conjectured by Ruan (b) find presentations of
quantum cohomology rings of symplectic quotients such as toric
orbifolds and quiver varieties. With K. Wehrheim and his former
student S. Ma'u the PI will continue to study holomorphic quilts,
functoriality of Lagrangian correspondences in Floer-Fukaya theory,
and relationship with low-dimensional topology. In particular, the PI
will prove the A-infinity version and the exact triangle for fibered
Dehn twists.

These research projects will improve our understanding of symplectic
geometry, which is a mathematical framework for understanding
classical mechanics, particularly for time-dependent energy functions.
Many of these projects are related to the behavior of
symplectic invariants under the operation of symplectic reduction in
which the number of degrees of freedom of a system is reduced by using
symmetry. These invariants also appear in the study of
quantum-mechanical ``sigma models'' by physicists, who
have made a number or predictions about their behavior under
symplectic reduction, some of which will be verified and generalized
as part of the project. The project on holomorphic quilts will have
applications to our understanding of three- and four-dimensional
spaces, especially invariants constructed using gauge theories which
are conjectured (and in some cases known) to have symplectic
interpretations. The PI will also continue his involvement with middle
school mathematics teachers.